Mathematical Sciences: Computing Science and Statistics: Symposium on the Interface; Theme: Graphics and Visualization

The 1992 Symposium on the Interface of Computing Science and Statistics will be held March 18-21, 1992 in College Station, Texas. The Symposium is organized around the theme of "Graphics and Visualization." It is sponsored by the Interface Foundation of North America and hosted by the Statistics Department of Texas A&M University. Professors James Blinn and Edward Tufte will give the keynote address and plenary session, respectively. These sessions should lead to discussion of how the new graphics tools can be used in the study of data and statistical methods. Sessions are being organized in the areas of Geographic Information Systems and Climate Research so that experts in these areas can interact with computer scientists and statisticians. There will also be sessions in a number of statistical methodology areas as well as in very recent developments in numerical methods, including the Gibbs sampler and wavelets. The 1992 Symposium on the Interface of Computing Science and Statistics will be held March 18-21, 1992 in College Station, Texas. The Symposium is organized around the theme of "Graphics and Visualization."